CTEQ-IPPP School on QCD Analysis and Phenomenology; St. Andrews, SCOTLAND

At the froniters of elementary particle physics, experiments
seek to produce previously-unobserved states of matter and
to detect forces unseen since the big bang. To interpret
these searches, it is necessary to understand the workings
of the strong force, quantum chromodynamics (QCD), which
binds together the nuclei of atoms, and which plays a
crucial role in all such experiments.
The CTEQ Summer Schools are designed to equip junior
experimentalists in elementary particle physics with the
background in QCD necessary to interpret current, and to envision new,
probes of the structure of the universe,
incuding investigations
of QCD itself. CTEQ Schools involve close interaction between students
and distinguished lecturers. The 2001 school is a collaboration
between CTEQ (Coordinated Theoretical-Experimental Project on QCD)
and the United Kingdom's Institute for Particle
Physics Phenomenology, based in Durham, England.